A Study of the Scaling Up Problem for Declarative Visual Programming Languages

The scaling up problem is composed of at least seven subproblems. Some have been investigated for visual programming languages, but the others have not. In this planning grant project, subproblems shall be identified, examined, and classified in preparation for future research.